Improvement of an Undergraduate Laboratory Curriculum in Molecular/Cellular Biology.

Many of the most important recent revolutions in science belong to Biology. The discovery of means to routinely isolate, sequence, and reintroduce genes into living cells has permanently changed biological teaching and research agendas. The tools of Cell Tissue Culture and Recombinant DNA Technology are providing the basis for an appropriate undergraduate education in modern Biology, and a hope for exploiting the future promise of Biotechnology. This Department has identified Molecular/Cellular Biology as an area for increased emphasis and, using local resources, has partially equipped an area to include a functional Cell Tissue Culture Laboratory. The laboratory complex is housing a specially designed course "Cell/Tissue Culture", as well as supplementing student experimentation in the Botany, Microbiology, and Genetics courses. Also, a new B.S. degree program with an emphasis in Molecular/Cellular Biology is being inaugurated. Thus the equipment provided through this project is greatly expanding the efficiency, depth, and variety of possible student experimentation in the areas of Cell Tissue Culture and DNA Technology.